Applications of the Modified Faddeev Equations

Theoretical calculations are performed on exotic atomic systems such as the anti-hydrogen and dt three body system using the modified Faddeev equations.